Laser Shaping of Advanced Ceramic Material Components

The proposed research shall systematically investigate the role of laser shaping parameters in optimizing material removal rates, surface quality, mechanical properties and residual stresses in laser shaped silicon carbide and SiC/SiC ceramics. This understanding will be used to machine complex shapes and then compare such bodies; for the surface finish, mechanical properties and material removal rates; with those produced by the diamond grinding, water jet cutting and ultrasonic machining. The proposed research opportunity will give Dr. Todd an avenue to advance her career and establish an interdisciplinary activities such as supervising the graduate students in both materials and mechanical engineering at Illinois Institute of Technology The PI will investigate the role of laser shaping parameters in laser shaped ceramics and compare those with materials machined by other techniques such as diamond grinding, water jet cutting and ultrasonic techniques.